Industry/University Cooperative Research Center for Nondestructive Evaluation - Evaluator Support

9317861 Thompson This award provides funding for the first year of three-year continuing award for support of an evaluator at Iowa State University's Industry/University Cooperative Research Center for Nondestructive Evaluation. The Center continues to meet the renewal criteria requirements of the I/UCRC Program. The evaluator of the Center duties consist of writing a Historical Profile, taking Surveys of industrial members and faculty, advising the Director of the Center and IAB members, attending annual evaluator meetings and conducting exit interviews with departing companies. The Program Manager recommends Iowa State University be awarded $8,000 for first year of three-year continuing award to support the evaluator at the Center.